Postdoctoral Research Fellowships in Chemistry

Dr. Gregory C. Fu has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Fu's doctoral degree was from Harvard University under the supervision of Professor David Evans. Dr. Fu intends to continue his research at the California Institute of Technology under the sponsorship of Professor Robert Grubbs. Dr. Fu's area of postdoctoral training and research will be the study of organometallic reaction mechanisms and the design of stereoselective metal-catalyzed organic reactions. Specifically, he will investigate the mechanism of the ruthenium(II)-catalyzed ring-opening metathesis reaction. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.Ds and attract them into meaningful careers in contemporary chemical research and teaching.